NSF Coordination Theory and Collaboration Technology GranteeWorkshop: July 1992

This is a grant to conduct a workshop composed of NSF grantees whose awards were made in the new area of inter-disciplinary research known as Coordination Theory and Collaboration Technology (CTCT). The purposes of the workshop are: First, to provide a forum for the exchange of knowledge in the form of perspectives, findings, methods and theory for this young, interdisciplinary field. Second, to provide an opportunity for the field to coalesce and grow. While certain subsets of the community of the researchers mingle at various professional meetings, as a whole, these investigators do not have regular contact. Third, this provides an opportunity for the research from these projects to be made more visible to the Washington based research funding and policy community. This workshop represents a planning opportunity for the IT&O Program. The future research agenda for CT2 funding and community building is an important part of the workshop program. The workshop is held on July 8 through July 10, 1992 in Washington, DC. A workshop report will be prepared and made available through publications and in response to requests.